Mathematical Sciences: Grothendieck Riemann-Roch on the Level of Forms

Professor Tong will work on several problems connected with generalized Riemann-Roch Theorems. He will study generalizations of the trace algebra of Beilinson and Schectman in higher dimensions. The hope is to get a natural connection on determinant bundles to give Grothendieck Riemann Roch formulas on the level of forms. This project falls into the general area of arithmetic geometry - a subject that blends two of the oldest areas of mathematics: number theory and geometry. This combination has proved extraordinarily fruitful - having recently solved problems that withstood generations. Among its many consequences are new error correcting codes. Such codes are essential for both modern computers (hard disks) and compact disks.